Computing Science and Statistics: Symposium on the Interface, April 21-23, 1988, Reston, Virginia

This Symposium is aimed at a theme of "computationally intensive methods in statistics". It will be held on April 21-23, 1988 in Washington, DC metropolitan area and hosted by the center for Computational Statistics and Probability at George Mason University. The keynote speaker is Brad Efron who will speak on computationally intensive methods in statistics. The program includes a collection of sessions on computationally intensive methods in statistics, a section on computing science related to these methodologies and two new features, an interdisciplinary session and a session focusing on the work of recent PH.D's. A newly formed, non-profit, educational corporation is sponsoring this Symposium. The corporation is established to make more efficient use of funds, to wean the symposium series from dependence on federal funding and to provide in an orderly way carryover funds for initiating subsequent Symposia.